PRofessional Enhancement Program (PREP)

Mathematical Sciences (21) The Mathematical Association of America's PRofessional Enhancement Program (PREP) enables faculty in the mathematical sciences to respond to rapid and significant developments that impact undergraduate mathematics. PREP workshops offer extended professional development experiences with active involvement by all participants, leadership by experts, and a commitment by participants to make use of what they learn. PREP workshops serve faculty in the mathematical sciences from all types of institutions, at all stages in their careers, and enable faculty to reach beyond their own educational experiences. To achieve a sustained impact, PREP workshops extend over time with preparatory, intensive and on-going components. At least nine workshops are offered each year, including at least one whose intensive component is on-line. Follow-up components are typically held in conjunction with the Joint Mathematics Meetings each January. Program details can be found at http://www.maa.org/prep.